Dissertation Research: Quantitative Cranial Morphology of the Atelinae: Function, Development, and Evolution

The primary objective of this proposal is to quantify variation in the anatomy of the head and jaw of four, closely related species within a subfamily of New World monkeys, the Atelinae. Currently there are a number of diverse approaches by which quantification of the morphology of complex structures has been attempted. Each has a number of advantages and disadvantages. The PIs will utilize several of these in order to provide data which can then be used to explain cranial variation within these monkeys. Hypotheses related to function, such as the role of dietary adaptations, will be tested to clarify the role of developmental factors in the production of variation. The results should help to clarify the forces which were involved in the diversification of these related species for it is thought that much of the variability seen today results from alterations in the patterns of growth in the species. The results may also have explanatory power regarding the relationship of form, function and evolution in other primate groups.